Developing and studying the replication of Math Corps, an out-of-school-time mathematics program for urban youth

The Wayne State University Math Corps is a mathematics enrichment and mentoring program that operates during summers and on Saturdays. The curriculum and the teach pedagogies in this informal learning program have documented success of supporting youths' mathematics learning as well as raising achievement levels in school. Through rigorous research and evaluation, this project seeks to analyze and understand the nature, extent, and reasons for Math Corps' success with youth learning in Detroit as well as the processes of program replication in three sites: Cleveland, OH; Utica, NY; and Philadelphia, PA. As such, this project will deepen understandings of program replication and of addressing the needs of youth in economically-challenged communities in order to promote mathematics learning.

The project's research studies will assess the multiple factors that make Math Corps successful with youth in Detroit and document the implementation of the program to the three replication sites. Research methods include discourse analyses, surveys, interviews, and pre/post-tests. The project will also conduct a retrospective evaluation of Math Corps based on quantitative datasets regarding both near-term and long-term youth outcomes.

This projects is funded by the Advancing Informal STEM Learning program, which seeks to advance new approaches to, and evidence-based understandings of, the design and development of STEM learning in informal environments.